Mathematical Sciences: NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, will develop numerical algorithms for moving boundary problems in crystal growth, construct fast algorithms for parabolic systems and geometric problems, and study dispersive limits and lattice models. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.